Assembly of Complex III of the Yeast Respiratory Chain

This proposal addresses the interactions between nuclearly and mitochondrially encoded proteins by study of the function of a novel protein--localized in yeast mitochrondria--that is essential for complex III of the electron transport chain. This nuclearly encoded protein (CBP4) is not a component of the respiratory chain but is essential for an active enzyme complex in vivo. The effects of this protein on the import into the mitochrondrion of complex III subunits, more rapid turnover of the subunits, subunit-binding to CBP4, and the relative kinetics of CBP4 and complex III subunit syntheses during de novo protein synthesis will be among the foci of the research. Use of a suppressor mutant strain should aid the analyses of the functional role of CBP4 and/or other proteins that may be shown to have a role in regulation of respiratory function.